Mathematical Sciences: Population Dynamics in the Chemostat and Gradostat

Many mathematical models for microbial ecosystems assume the environment to be homogeneous, as simulated by the chemostat. It is well established that such an environment does not support competitive coexistence. This project will focus on two factors that can lead to coexistence: heterogeneous enviornment, and time lag between nutrient consumption and population growth. The gradostat is a laboratory system related to the chemostat and simulates ecosystems with spatial heterogeneity in the form of substrate gradients. The mathematical model for competition in the gradostat is an example of order.preserving dynamical systems which have been studied in great detail in recent years. The study will give better understanding of growth dynamics in gradient.like environments and suggest new experiments to be performed with the gradostat. Growth delay has been observed experimentally but its mathematical models have not been studied extensively. The principal investigator will study model equations which are integrodifferential equations where delay is described by a kernel in the Volterra integral which reflects growth being affected by consumption at all previous time, i.e. distributed delay. The goal is to determine if competitive coexistence can be expected with growth delay in general, or only with certain special forms of delay.